The Description Implementation and Performance Evaluation ofDiscrete Event Systems

There is a growing need for new classes of models for systems constructed from modules of interacting discrete events such as manufacturing systems, communication networks or computer operating systems. Such models are also needed for systems described by continuous variables supervised by computer-based controllers which alter their actions when they are triggered by certain discrete events. These models are called discrete event models or DEMs. This proposal introduces a new class of discrete event models called Finitely Recursive Processes (FRP). These models are motivated by problems in supervisory control while some of the formal structure is based on Hoare's Communicating Sequential Processes. PI proposes research in four directions. First, consolidate and extend the descriptive power of FRPs. This research is relatively straightforward since his work so far has concentrated on the descriptive power of FRPs. Second, investigate how FRPs can be used to assist in the implementation of supervisory control. He proposes to develop a LISP-based scheme for doing this, Third, extend FRPs so that they can be used for the performance evaluation of discrete event systems. This will require embedding FRPs in a real-time environment. For this purpose, he proposes to augment the fundamental notions of events and processes in FRPs with real-time attributes following the work of Knuth on attribute grammars. Fourth, develop a supervisory control for a complex, real-world application.